Presidential Young Investigator Awards

Laser-optic methods will be combined with digital imaging capabilities, to permit material characterization and modeling of failure mechanisms in ceramics and toughened composites, with a special emphasis on high temperatures.